Collection Storage Infrastructure for California Academy of Sciences Ornithology and Mammalogy Collections

An award has been made to the California Academy of Sciences under the direction of Dr. John P. Dumbacher for the acquisition of new cabinets to store the bird and mammal collections of the natural history museum in San Francisco. Earthquake damage in the old building led to the construction of a new museum, with new research areas in which the cabinets will be located. The bird and mammal collections of Cal Academy contain important specimens of marine mammals and seabirds, many from the Galapagos Islands and many collected from the early 1900s. Scientists, students, and government agencies make heavy use of the specimens in the collection. The museum makes extensive exhibition and education outreach efforts that will be enhanced by protecting the specimens in new storage cabinets.